Growth Kinetics Studies

The objective of this theoretical research on growth kinetics is to extend our understanding of the generic features associated with the growth of large ordered structures after a deep temperature quench from a disordered state. In this growth process, patterns evolve which can be characterized by certain universal features. Previous models showed how one could understand these universal features for simple models applicable to magnets and alloys. New work will be done to understand more realistic and complex unstable systems. %%% The evolution of a disordered system to an ordered state due to a rapid drop in temperature is a complex problem which is common to many condensed matter and materials systems including phase separation in polymers and spinodal decomposition in alloys. This research will develop new analytic models for growth kinetics which will be checked against numerical simulations and experiment.